Physics and Simulation of Helicon Plasma Sources

Scharer
9905948

The objectives of this research include new experimental
measurements and computational simulations of helicon
plasma sources (n_e=10^11 - 10^13/cm^3) which are
important for a variety of future applications. These
include submicron plasma etching of wafers, processing
of materials, an efficient ionization source for argon
lasers, a large volume source for simulation of space-plasma
experiments, a source for fusion plasma confinement
experiments, a processor of nuclear waste, and as a
thrustor for space vehicles. Key issues which have not
been resolved to date for these sources are: 1) Mechanisms
for producing fast ionizing electrons (in argon E > 16 eV)
and measurements of their energy distribution function in
space and time, which are key to efficient ionization in helicon
sources, 2) Mechanisms for rapid spatial damping of the wave
in inhomogeneous magnetic field configurations and realization
of new antennas which improve source operation, 3) 2-D
simulations of wave antenna coupling, linear heating, and
nonlinear wave trapping processes, which can be compared
with experimental observations and utilized to predict future
helicon source properties which is new to the field. We have
developed a new experimental facility which will utilize as
diagnostics a fast response optical probe, spectroscopy
of energetic argon states indicative of fast electrons, wave
field, frequency spectral analysis, Langmuir probe and
diamagnetic loops and network analyzer techniques to
measure the matched antenna impedance. We will develop
a 2-D plasma profile, finite-difference, full electromagnetic code
(MAXEB) which will be compared with experimental observations.
The improved understanding of the physics of plasma production
and simulation techniques for these sources will provide a basis for
greatly improved antenna and magnetic field source design
and larger size plasma sources for a variety of applications.
The close coupling of our new experimental program with simulation
programs provides an exceptional opportunity for improving our
knowledge for future applications in this emerging technology area.
***